CAREER: Laser-Assisted Hybrid Nanomanufacturing System to Scale up Qubit Array Fabrication for (i) Quantum Computing and (ii) In-space Manufacturing

This Faculty Early Career Development Program (CAREER) award supports the investigation of a new hybrid nanomanufacturing platform to build quantum information devices with high precision and reliability. The project advances the national interest by promoting the progress of science for in-space manufacturing and quantum computing and strengthening the United States' leadership in next-generation space systems and quantum technologies. The work will lay the groundwork for scalable production of qubit arrays, enabling more powerful and energy-efficient computation and measurement. The research also prepares technologies suitable for future space-based manufacturing, where microgravity can improve material uniformity in quantum devices. The educational plan integrates research with hands-on learning through an immersive virtual reality teaching platform. The virtual reality enabled training will increase participation and open pathways for learners, especially those who typically do not have access to hardware or testing facilities, to participate in advanced manufacturing and quantum technology education.

The objective of this CAREER project is to establish a laser-assisted hybrid nanomanufacturing system that unifies three capabilities: electrically driven micro- and nano-scale printing of functional materials; coaxial femtosecond laser sintering to form dense, functional, and patterned three dimensional features; and dual-angle laser diffraction sensing for in situ quality monitoring and feedback control. The research will (1) model and measure coupled electric fields, droplet formation, and material transport during printing; (2) establish predictive models for laser-induced melting, neck growth, and microstructure evolution that govern device functionality; (3) design and implement the laser diffraction based sensing and control framework to enable nanoscale digital holographic microscopy; and (4) demonstrate optically addressable qubit arrays fabricated with the integrated platform. The project will also pilot scaffold-assisted growth strategies to program desired twist angles in stacked two-dimensional materials and integrate the resulting structures into device architectures. By addressing interactions among electric fields, fluid dynamics, and ultrafast laser energy deposition, the project is expected to deliver a scale-up pathway for fabricating high-quality qubit arrays and quantum devices and to provide a blueprint for adaptable production in microgravity environments. The resulting models, sensing methods, and process controls are anticipated to generalize across other additive manufacturing processes where precise patterning, defect mitigation, and closed-loop control are essential.